Light Scattering Studies of RecA Protein

The goal of this proposal is to contribute to the understanding of the physical basis of post-replicative repair of DNA damage and genetic recombination. In the prokaryotic organism Escherichia coli, recombination and repair are controlled by the activities of RecA protein. In vitro, RecA exhibits a manifold of activities (DNA binding, strand exchange catalysis, ATPase, proteolysis, etc.) making it the current paradigm for general genetic recombination, in vivo. Intrinsic to its functions, RecA exists in various assembled and/or disassembled quaternary states including (ostensibly) monomers, small aggregates of monomers (protomers), aggregates of protomers (filaments) and large bundles of self-assembled filaments. Although a number of conventional biochemical techniques (chemical crosslinking, size-exclusion chromatography, centrifugation-sedimentation, optical turbidity and electron microscopy) have been applied to probe the phyical behavior of RecA protein, the mechamisms governing formation for the various quaternary forms of RecA remain to be elucidated. In the proposed research light scattering techniques complemented by electron microscopy will be employed to address eight fundamental questions about RecA: (1) What are the fundamental kinetic mechanisms governing RecA protein self- assembly? (2) What is the nature of the protein-protein interactions involved in self-assembly of RecA? (3) What is the associated state of RecA in solution under in vitro strand exchange conditions? (4) What are the quaternary form(s) of RecA that bind DNA? (5) To what extent do processes of RecA self-assembly and RecA assembly on single strand and double stranded DNA compete with one another? (6) How do nucleotide sequence, fragment length and secondary structures of DNA influence the associated states of RecA? (7) Which quaternary forms bind nucleotide tri-and di-phosphates? (8) What is the nature of the DNA sequence dependent ATPase activity of RecA protein? The information gained from these studies should provide fundamental information not accessible by any other means. Development of light scattering methodology and its successful application to study the solution behavior of RecA and RecA/DNA complexes will pave the way for further studies of a number of other regulatory proteins (microtubules and helicases, for example) whose functional activities critically depend on intermolecular association to various quaternary forms.